Connection to Internet (NSFNET)

9521804 Green Bryan College requests support from NSF for connection of two college campus networks to (Tennessee Education Cooperative Network (TECnet). TECnet a midlevel network will provide operations management and information services and it will give the campus access to the Internet connection, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connection to be able to access information resources throughtout the state, the nation and the world. The connection will benefit the faculty, staff students of Bryan College campus as well as the community in general.